Computational Development of Order Restricted Statistical Inference

Often experimental conditions, the circumstances of an observational study or scientific theory or conjecture require an ordered response. Standard statistical analysis software does not allow constraints of these kinds, although the statistical theory is now well-developed. This project will develop software for order restricted inference. This project will integrate regression analysis and the analysis of linear models with order restricted inference.